Presidential Young Investigator Award

This Presidential Young Investigator Award is made to promote research in the nature of the residual stresses that can exist in specific bodies. Residual stresses exist in all manufactured parts and many natural ones. However they are normally ignored in stress analysis studies and they should be considered.